Acquisition of Computer Infrastructure for the San Diego State University Computational Science Research Center

With support from the Major Research Instrumentation (MRI) Program, the Computational Science Research Center at San Diego State University will acquire a computer system consisting of an Intel/Linux cluster and 4 workstations. This equipment will enhance research in the following areas: a) calculation of structural and dynamical properties of reactive chemical intermediates with low-barrier mechanisms for chemical transformation; b) development of numerical integration techniques for application to oceanic flow patterns around static objects; c) modeling of protein-protein docking as a component in iterative protein design techniques; d) development and testing of mathematical models of flame dynamics; e) simulation of collisions between different planets and between planets and their suns; f) calculation of dynamical properties in quantum fluids; and g) three-dimensional mapping of mitochondrial structures and associated statistical analysis.

A cluster of fast, modern computer workstations is vital to serving the computing needs of active research departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing. These studies will have a significant impact in a wide number of areas, including biochemistry, ocean sciences, drug development, combustion chemistry, astronomy, and materials sciences.